Experimental and Theoretical Investigations of Organic Reaction Rates and Mechanisms

With this renewal proposal the Organic and macromolecular Chemistry Program supports the ongoing work of Dr. Kendall N. Houk in the Department of Chemistry at the University of California, Los Angeles. The work is aimed at developing a general theory of organic reactivity in organic chemistry, biochemistry, and materials science - using theoretical methods complemented by experimental studies carried out in Dr. Houk's laboratories or those of collaborators. The research provides valuable experience for undergraduate, graduate, and postdoctoral students.

The research proposed covers a wide range of areas including: pericyclic reactions (both those involving diradical pathways, and antibody catalysis), the femptochemistry of norbornadiene and 1,4-cyclohexadiene, the properties of schizo-aromatics and other organic electronic materials, and the effects of vinyl and phenyl substituents on Cope rearrangements.